SBIR Phase I: Rapid Response Thermistors for Precision Manufacturing

9860235
This Small Business Innovation Research (SBIR) Phase I project will investigate rapid response thermistors for ultra-precision manufacturing. State-of-the-art thermistors and competitive products have slow response times and high impedance limiting their applicability for real-time sensing of state variables during manufacture. This proposal addresses the development of high-sensitivity, low-power thermistors with broad-band, rapid response, prepared by incorporating nano-scale materials (i.e., those materials with grain sizes less than 100 nanometers). These nano-engineered devices will enable near- instantaneous detection of thermal changes, making them applicable in machining, welding, non-destructive evaluation (NDE), and casting operations. During Phase I, Nanomaterials Research Corporation will determine optimum thermistor compositions, address fabrication issues, characterize device performance, and establish proof-of-concept that nano-engineered thermistors can be used for real-time thermal monitoring. The Phase II effort will seek to optimize the technology and produce prototypes for customer qualification. Phase III will commercialize the technology.